Modernizing the X-ray Diffraction and Fluorescence Laboratory

The Department of Geology and Geography modernizing the existing x-ray diffraction and fluorescence of a dual goniometer and detector upgrade to provide instruction in these techniques to upper level geology students in mineralogy, petrology and geochemistry courses. Additionally, the facilities are being used by advanced chemistry and physics students enrolled in an interdisciplinary course designed to provide hands-on experience in powder X-ray diffraction and fluorescence spectrometry. Students performing undergraduate research employ they instrument in their investigations of fundamental physical and chemical principles underlying geological phenomena.